Doctoral Dissertation Research: Political Consciousness and Young People's Life Narratives: In-Depth Profiles of Radical Right and Democratic German Men

This dissertation research will investigate the development of political consciousness in German young men. Nine young men in their third year of vocational school in Berlin will be interviewed four times. All have been interviewed in a previous wave of interviews. The nine have been selected to represent a range of political positions from radical right to democratic and to sample from a variety of vocational programs, including information technology electrician, cook, and concrete worker. Oral histories, observations of work and social life, and discussions of the previous interview will be used to understand why some working-class men adopt radical right politics while others develop a democratic political consciousness.